Atomistic and Continuum Models of Solids

The PI proposes to develope theoretical models of crystalline solids
that are based on the positions of the atoms that make up the crystal.
As a first step, the PI proposes to study (large) elastic deformation
of perfect crystals. This will help us to understand the critical strain that
the material can sustain before defects form. The PI then proposes to
study the formation, structure, energetics and dynamics of defects in crystals.
Understanding defects in crystals is crucial since defects control the
response and failure of the material, as in, e.g. nano-devices
and semi-conductor thin films. By understanding the interplay between
loading and failure mechanisms as well as their microscopic origin, the PI
hopes to give guidelines fordesigning materials that avoid certain modes of failure.
To obtain simplified models that can be readily linked with traditional
theories of continuum mechanics, the PI also proposes to develop
continuum models in the form of nonlinear elasticity theory
that are derived directly from the atomistic models. Such a theory gives
a much simplified description for the material properties and are
therefore easier to use.

As applications, the PI proposes to study the mechanical properties of
carbon nano-tubes. Nano-tubes are very good examples for this project
since they can sustain very large elastic deformation before failure. In fact
they are the strongest fiber known to us. The PI proposes to study large
(therefore nonlinear) deformations of nano-tubes, their modes of failure,
as well as properties of nano-tube-reinforced materials.